Actively Controlled Hood for Machinery Noise

This project addresses the active control of noise for machinery. In most cases, passive control, by means of acoustical hoods, is used to reduce noise. Some applications include manufacturing machines in industrial environments, and heating, ventilating and air conditioning systems in office or residential spaces. In passive control, the hood is designed to attenuate the interior sound field by providing for acoustical damping in the air cavity and for structural damping in the enclosure walls. The performance achieved using these techniques is limited by constraints of volume, weight, and cost. On the other hand, the active control approach applies to the design of a closed loop feedback controller where issues of time delays, stability, and bandwidth are important. This project's approach is to design an enclosure structure that is as close to a stiff membrane as possible. Such a structure's response is dominated by supersonic structural modes. Cancellation of exterior noise is obtained by minimizing the normal response along the enclosure surface. This approach will be tested and compared with existing active control strategies. This approach's expected advantages include reduction of the number of surface sensors required to observe the response of the enclosure walls, and spatial filtering which insures rejection of excitation by shorter wavelength disturbances.